Spectroscopy and Intra-Cluster Photochemistry of Electrons and Anions in Water Clusters

In this project funded in the Physical Chemistry Program of the Chemistry Division, Mark Johnson of Yale University will continue study the spectroscopy and dynamics of sequentially solvated anions and electrons in the gas phase. The absorption spectra, photofragmentation dynamics, and photoelectron spectroscopy of complexes with a well-defined composition in free molecular jets will be monitored using tandem time-of-flight spectroscopies. The isomers postulated to exist in the (H2O)n cluster anion system will be characterized, and the dependence of the spatial extent of the excess electron on cluster size will be determined in order to clarify the origin of charge transfer to solvent transitions of aqueous anions. Photoinduced intra-cluster reactions, including intra-cluster electron transfer and the O- + HO --> OH- + OH reaction will be examined. These systems to be studied are intermediate between the solution phase and more traditional ion-molecule reaction studies and should provide valuable correlations. %%% This project examines how excess charge is accommodated in finite, homogeneous media, such as aqueous solutions. The focus of these studies is on charged aggregates of stable molecules held together by very weak forces which are more physical than chemical. Unlike metal systems, in which the excess charge tends to be delocalized over the aggregate, different molecular systems vary widely in how they accommodate the excess charge. Insights into the behavior of dissolved species are expected to result from these studies.